Strategic Planning for Pilot Demonstration of the Use of Advanced Information Technology to Improve American Education

Based on accumulating evidence of instructional effectiveness from research in small individual studies and the clear potential of new technological developments, many national boards and commissions have recently recommended exploring the use of technology to improve American education. This proposal aims to assist state and federal agencies concerned with educational improvements to evaluate the potential of technology to influence directly the solution of problems of American education, using large scale demonstration in typical educational settings. A planning framework will be developed to assist in the selection of suitable demonstrations. Some model demonstrations that meet the criteria of the planning framework will be roughed out. These rough designs will be reviewed by educational policy makers, experts, and industry and foundation officials at an invited conference. This activity aims at identifying applications of technology that can make a prima facie difference in American education. A report of the conference will include a discussion of the planning framework, and a description and critique of the model demonstrations.